Biophysical Analysis of Cellular Development

The long-term goal of this project is to uncover the fine structural changes and behavior of living cells which lead to the emergence of structural organization and morphogenesis in embryonic development. As part of this effort, new non- destructive methods of light microscopy are devised and applied to analyze the dynamic changes of fine structure, directly in living cells. In the upcoming granting period, it is anticipated that the development of a video microscope system for four-dimensional analysis of early developmental events in transparent intact living cells and embryos will be completed. The proposed system will provide a practical means for dynamically retrieving stereoscopically paired or other three-dimensional, high- resolution images synthesized from a through-focal series of thin optical sections or tomograms recorded at time-lapsed intervals. As the system is completed, it will be tested and its performance optimized by examining the four-dimensional organization of microtubules involved in the asymmetric positioning of cell centers, as well as the behavior of primary mesenchyme cells participating in spicule morphogenesis in echinoderm gastrula and plutei. It is anticipated that his research will lead to the development of a four-dimensional imaging system which will revolutionize the ability of cell biologists to study living cells.